Lie theory and Poisson geometry

This award supports the participation of US-based participants in the international workshop "Lie Theory and Poisson Geometry," held at the Centre International de Recontres Mathemathiques (CIRM), in Marseille, France, during the week of January 10-14, 2022. Its subject is the interplay between Poisson geometry and representation theory, and it is aimed primarily at early-career mathematicians. Its overarching goal is to expose the participants to a diverse spectrum of ideas on the forefront of modern research in these fields, and to give them an opportunity to enlarge their network of collaborators.

The meeting consists of a series of mini-courses given by senior mathematicians and contributed talks delivered by young researchers. These focus on the latest progress in several rapidly evolving areas at the intersection of Poisson geometry and representation theory, with an emphasis on Poisson manifolds of compact type, Poisson-Lie groups and quantum groups, and cluster structures in Poisson geometry. They are supplemented by structured discussion sessions, with the goal of promoting an active exchange of ideas and the formation of long-term working groups. Details of the schedule can be found on the conference website: https://conferences.cirm-math.fr/2629.html